The Computational Microscope

Cells are the building blocks of life, yet they are themselves a
collection of proteins, small molecules, and solvent, none of which
are, in and of themselves, alive. How living things can arise from the
"behavior" of molecules, which are simply obeying the laws of physics,
is the essential conundrum of modern biology. The rise of scientific
supercomputing has offered the chance to study living systems at the
levels of atoms, cells, and all levels in between. With Blue Waters,
it is now possible to take the most critical step from inanimate to
animate matter by describing assembly and cooperation of thousands of
macromolecules made of billions of atoms. The ability to explore
living systems via the "computational microscope" of molecular
dynamics simulations has a profound impact not only on the progress of
basic science, but also in the treatment of disease and the
development of drugs.

This project will use Blue Waters to study three types of biomolecular
systems: the microtubules that make up the cell's cytoskeleton, the
chemosensory array that acts as a "bacterial brain", and two highly
relevant retroviruses: HIV (human immunodeficiency virus) and RSV
(Rous sarcoma virus). The first project will model microtubules, in
their native form, as well as the interactions between the
microtubule, its regulatory partners, and anti-cancer agents.
Simulations of the microtubule and its interactions with drugs can
help drive the development of new microtubule-attacking cancer
therapies. The HIV part of the virus project builds on prior success
in modeling the full HIV capsid to evaluate the effects of HIV drugs
on capsid stability and to model the essential interactions between
the capsid and host cell factors. Simulations of the HIV capsid
provide the necessary detailed knowledge of the vital infection
process to develop new HIV therapies. The RSV part of the virus
project has constructed the first model of an intermediate stage in
virus capsid maturation, which will be used to describe the maturation
process of retroviruses may open the doors to a new type of anti-viral
drug which attacks that maturation process. The chemosensory array
project seeks to answer how input from many chemical sensors on the
bacterial surface are transduced across hundreds of nanometers in the
array, leading the cell to decide if it should continue swimming or
change direction, to adapt to changing environments. The chemosensory
array is a universal structure in bacteria, but absent in eukaryotes,
offering a new target for antibiotic drugs - a desperately needed
advancement in combating bacterial resistance to current antibiotics.
Each of the projects proposed presents an opportunity for petascale
computing to contribute to mankind’s health and to answer one of
mankind's oldest questions: "What is life?"